CAREER: An Integrated Approach to Neuron Mechanics: Deciphering the Functional, Mechanical, and Structural Interactions between Microtubules and Actin

The research objective of this Faculty Early Career Development (CAREER) award is to use a suite of custom imaging and microscale manipulation tools to investigate the interdependence of motility, adhesion and transport in neurons. Neurons are specialized cells, with highly elongated geometries, that form mechanically connected networks to enable transmission of signals in the nervous system. The development of healthy neural networks depends on the action of filamentous cytoskeletal structures: actin guides neuron growth and adhesion, while microtubules serve as the tracks for the long-distance intracellular transport of proteins and organelles that is required to maintain the extended cell protrusions. Studies conducted under this award will determine the extent and nature of the coordination between the actin and microtubule structures by measuring how errors in long-distance transport affect cell adhesion and motility, and how chemically- and mechanically-engineered scaffolds that modulate adhesion affect transport. The effects of sudden impact injury on single neuron mechanics, adhesion and transport will also be determined.
If successful, this research will provide a new paradigm for the experimental investigation of neurons (-). One that integrates distinct features such as adhesion or transport into one comprehensive model of neuron function. Ultimately, the results will lead to the design of improved neural devices and implantation materials, and novel treatment strategies for a wide range of neurological disorders and traumatic brain injuries (TBI). The educational goals are to include undergraduate students in all aspects of research, and to develop new teaching material on the emerging field of neuron mechanics. A new internship program, Veteran-student Internships in Biomechanics Research and NeuroTechnology (VIBRANT) will be developed to bring veteran students from local community colleges to campus to pursue independent research. One-on-one mentoring and professional development opportunities will be provided to encourage and empower veteran students to pursue science and engineering degrees.